Collaborative Rearch: Summer Program on Game Theory and Economics (June - July 2000, 2001, and 2002 Stony Brook, New York)

9987692
Tauman

Game theory plays a significant role in much of the contemporary research in economic theory and is accordingly a frequent theme in organized activities at outstanding research centers throughout the world. This grant supports the annual summer programs in 2000-2002 of the Center for Game Theory in Economics, at the State University of New York at Stony Brook (USB). The USB's summer program is unique in its explicit focus on game theory, both theoretical and applied. Each summer research-oriented conferences and workshops and an intensive course of instruction on a topic of major significance, complemented by a further period of informal research activities are made available. A large international group of researchers --- a mix of established scholars, junior faculty, and graduate students --- whose interests represent a diverse array of theoretical and applied aspects of game theory are brought together. The programs for 2000-2002 are a continuation of the series of summer activities held at Stony Brook from 1990 to 1999, each of which attracted more than 150 participants. Formal activities normally include a five-day conference with plenary and parallel sessions, and invited and contributed papers; two weeks of workshops on selected themes; and quite often one to two weeks of intensive instruction on selected topics. The value of this format and approach is evidenced by the success of the previous programs.
While the summer program's primary objective is to stimulate and disseminate new advances in both theory and applications, it also serves to make conceptual and methodological developments in game theory available to an expanding group of scholars in economics and other disciplines. At the same time the summer program provides a venue for these scholars to present their ideas and concerns to game-theorists, enabling both to explore fruitful new areas of collaboration. This interaction is an integral, and very valued, part of the activities.